Upgrading the WIRO 2.3 m Telescope

This is a project to upgrade the infrastructure at the University of Wyoming Infrared Observatory (WIRO) 2.3 meter telescope. The main objectives are (1) to replace an antiquated, custom-built telescope control system (software and hardware) with modern, robust commercial components, (2) to initiate a Night with an Astronomer partnership with the Casper Planetarium and to provide telescope access to Wyoming's community colleges to give students and faculty opportunities for science training at UW and WIRO, and (3) to offer a service observing program of 150 clear hours per year to the national community on any of three existing WIRO instruments.